Conference: Artificial Intelligence, Formal Methods, and Mathematical Reasoning (AIMing) PI Meeting

This award provides additional participant support for the first meeting of principal investigators in the NSF Artificial Intelligence, Formal Methods, and Mathematical Reasoning (AIMing) program, which will be held at the new NSF Institute for Computer-Aided Reasoning in Mathematics on April 2 and 3, 2026. The AIMing program seeks to support research at the interface of innovative computational and artificial intelligence (AI) technologies and new strategies/technologies in mathematical reasoning to automate knowledge discovery. Artificial intelligence for mathematics is a rapidly growing and extremely competitive field, especially in the US and China. The AI research community has come to realize that the only route to general intelligence is to combine the strengths of both neural and symbolic approaches to AI, specifically by developing AI systems capable of mathematical reasoning. AI that can reason with mathematical precision is crucial for developing safe, secure, and reliable hardware and software systems, making accurate financial and economic predictions, developing complex scientific and engineering models, and more.

The meeting will foster collaboration and communication between the groups funded by the program, to support synergies to maximize the program's impact. This grant will support additional participants in the meeting, including students and collaborators of the PIs. The event website is available at https://icarm.io/event/nsf-aiming-pi-meeting/.